Studying Efficiency and Generality in Parallel Computing Using a Machine-Independent Programming Language

This is a project to extend, implement, and evaluate a special-purpose programming language for computer vision. The language, called Apply, includes parallel constructs for local vision operators that are compiled differently for different architectures. The extension being developed includes constructs for global control through divide-and- conquer, and is intended to allow portable parallel programs that can be ported between dissimilar architectures to be written. A compiler for extended Apply is available for each of several different parallel architectures, and compiled code is being compared to handwritten code on each architecture. In addition, a widely used package of vision routines is being rewritten in the extended language and distributed for evaluation within several applications groups.